Presidential Young Investigators Award: Effects of Inter- facial Properties on Contaminant Transport and Transforma- tions in Aquatic Systems

PYI: Effects of Interfacial Properties on Contaminant Transport and Transformation Processes in Aquatic Systems This is an award to support research on how the extent and rates of sorption of trace contaminants are effected by the surface chemical and physical characteristics of the sorbent particles. While relaxation kinetic studies have shown that rates of adsorption/desorption reactions are quite rapid, the observed rates of approach to equilibrium in batch or column reactors are much slower. This suggests that physical transport processes caused by particle association control the rates of sorption. This project involves an investigation of the relative importance of surface chemical and physical processes on the extent and rate of sorption, by varying the particle-fluid hydrodynamics, particle size and porosity, and mineralogy of sorbent, using various reactor types including batch, column, and differential column reactors and determination of how changes in surface and interfacial properties affect two-phase flow in porous media. One key factor affecting the transport of a separate organic liquid in the subsurface is the properties of the three interfaces of the systems: organic liquid-water, water-solid, and organic liquid-solid. These properties determine wettability which, in turn, influence the pore networks through which the two liquid phases flow. Very little is known about how inorganic and organic solutes change wettability by changing the interfacial properties. This initial increment of support for this Presidential Young Investigator is aimed at identifying the effects that mineral surfaces and interfacial properties have on transport and transformation processes of environmental contaminants in groundwater aquifers. A variety of problems of national concern are controlled by surface and interfacial properties of geologic subsurface formations. The release of polyehlarinated biphenyls and heavy metals from resuspended lake or ocean sediments from dredging operations, the leakage of radionuclides into the groundwater from subsurface geologic repositories, or the migration of hazardous organic liquid at spill and waste disposal sites are examples of the issues toward which this research is addressed.